Reverse Mathematics and Degrees of Unsolvability

Reverse mathematics is a far-reaching research program in the
foundations of mathematics, wherein core mathematical theorems are
classified up to logical equivalence according to which
set-existence axioms are needed to prove them. The degrees of
unsolvability are a well known algebraic structure arising from
basic notions of relative computability and algorithmic
unsolvability. In the current research project, some outstanding
problems in the reverse mathematics of measure theory are being
addressed in unexpected ways, by applying recent advances in
algorithmic randomness and Kolmogorov complexity. In the realm of
general topology, reverse mathematics itself is being extended far
beyond the standard so-called "big five" equivalence classes, to
encompass much stronger systems. Remarkable relationships are
being revealed between, on the one hand, reverse mathematics and
other foundationally interesting topics, and on the other hand,
degrees of unsolvability of mass problems associated to
effectively closed sets of real numbers.

Reverse mathematics is a far-reaching research program in the
foundations of mathematics. The purpose of reverse mathematics is
to elucidate the axiomatic and logical structure of mathematics as
a whole. It turns out that many core mathematical theorems fall
into a relatively small number of logical classes, the so-called
"big five" classes. Thus one sees a remarkably orderly structure.
The purpose of the current research project is to further clarify
and extend this structure. Among the technical tools being
deployed are algorithmic randomness, complexity theory, and
degrees of unsolvability.